PostDoctoral Research Fellowship

This award is made as part of the FY 2013 Mathematical Sciences Postdoctoral Research Fellowships Program. Each of the fellowships supports a research and training project at a host institution in the mathematical sciences, including applications to other disciplines, under the mentorship of a sponsoring scientist. The title of the project for this fellowship to Nicholas Brubaker is "Mathematical Modeling of Capillary and Electro-Capillary Origami." The host institution for the fellowship is the University of Arizona, and the sponsoring scientist is Dr. Joceline Lega.